The Development of Gender, Race and Ethnicity Concepts in Young Children

The objective of this project is to develop a research proposal on "The Development of Gender, Race, and Ethnicity Concepts in Young Children." The planning activities will include collaboration with well established researchers in the field to strengthen the principal investigator's research background and to improve her publication record. Support of this project will assist a well trained black psychologist to improve her research techniques and to complete the planning and development of a regular MRI proposal. The planning activities, if successful, will significantly enhance the potential of the investigator to compete for regular MRI and other research support.